Advanced Technologies & Materials in Concrete Slipforming

The objective of this research is to explore new ideas, advanced technoligies, and new materials utilized by Japanese construction companies and research centers in order to establish an innovative and creative engineering solution to the existing construction and design problems of concrete core slipforming with a cross- disciplinary approach.